Workshop: Support for the CRA-W Career Mentoring Workshop for Women in Research Careers in Computer Science and Engineering; Washington, DC

CISE Special Projects Program - FY05

CRA-W has been funded by the CISE Special Projects program to support the 2005 Career Mentoring Workshop for Women in Research Careers in Computer Science and Engineering, to be held in April 2005 in Washington, DC. The workshop will target women in universities and national and industrial laboratories where a substantial research program is important. The workshop will have two tracks: industry and government lab researchers, and pre-tenure academic researchers.